Strengthening Of Research In Materials Science and Engineering at the University of Puerto Rico, Mayaguez Campus

The objective of the proposed program is to strengthen research in materials science and engineering at the University of Puerto Rico, Mayaguez Campus. To accomplish this, a variety of activities will be implemented. Research infrastructure will be strengthened by faculty and Hispanic student involvement in the following projects: o Synthesis and Spectroscopic Characterization of High- Transition Temperature Superconductors o Development of a Rapid Solidification Facility o Development of Bacterial Polymers as Biodegradable Plastics o Research Centered around a Laser Interferometric Displacement Gage and a Mechanical Testing System o Adsorption Microcalorimetric Studies in Heterogeneous Catalysis: The Relationship between Site Strength and Catalytic activity. Additional activities to enhance the competitiveness of the faculty will include annual symposia and two yearly short courses on materials science and engineering, summer minisabbaticals in mainland research laboratories, and frequent attendance to national scientific meetings.